Heteroepitaxy for Substrate Engineering

This project addresses issues in heteroepitaxy through research into MBE growth and detailed characterization of epitaxial fluoride buffer films on silicon substrates, and subsequent overgrowth with III-V materials (GaAs, InGaAs). The aim is to understand how to tailor and control defects in the overlayers by using such buffer films. A general goal of the project is to study heteroepitaxy from the point of view of engineering ideal substrates for semiconductor materials used in photonic and electronic applications.